U.S.-Korea Cooperative Research on Biological Filtration of Water

0120044
Kim

This award will support Dr. Dong-Shik Kim, Assistant Professor at the University of Toledo, for a planning visit to develop collaborative research with Dr. Sang Jun Sim, Senior Research Scientist at the Korea Institute of Science and Technology (KIST), in the area of water treatment design. A hybrid water treatment system, using both ozonation and biofiltration, will be explored. Dr. Kim has expertise on biofilms, while KIST offers expertise in system design and pilot plant operation. This planning visit is meant to enable Dr. Kim to develop detailed plans for a synergistic, mutually beneficial collaborative research project.